Research Experiences for Undergraduates in Chemistry at Grinnell College

Professor Luther Erickson and other members of the Chemistry Department of Grinnell College are being supported to conduct a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1990-92, ten (10) undergraduate students will spend ten (10) weeks each summer actively engaged in a variety of research projects. Projects range from molecular orbital calculations on transition metal hydrides to investigation of the diffusion of analytes in solid polymers. Students will be expected to write a project proposal, carry out supervised experimental work, present a seminar on the proposal and a second seminar on the results, and write a detailed final report.